CRCD: Photovoltaic Device Processing - A Systemic Curriculum and Research Program

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, entitled, "Photovoltaic Device Processing-A Systemic Curriculum and Research Program, " at the University of Arizona, under the direction of Dr. Dunbar P. Birnie. The overall objective of this project is to expose and integrate numerous students into the complexities of photovoltaic device design-both in their class work and by incorporating them into state-of-the-art research.